Establishing a CDIO Framework to Improve Learning and Retention in a Diverse Undergraduate Engineering Student Population

Engineering - Mechanical (56)

This project focuses on building upon an innovative undergraduate education initiative pioneered by MIT called Conceive-Design-Implement-Operate (CDIO) through the integration of key success enabling practices of Minority Engineering Programs. Specifically this effort integrates the CDIO framework with principles of collaborative learning to develop a reformed mechanical engineering design curriculum. The specific goals of the project include: 1) development of a model framework for adapting and implementing CDIO; 2) improving student learning outcomes; and 3) increasing retention rates of engineering undergraduates. Collaborating institutions include Cal State Polytechnic, Cal State Los Angeles, and Cal State Fresno.